Grain Boundary Structure and Properties in Ice

The objective of this research is to enhance the understanding of grain boundary structure and deformation behavior in ice and related crystalline materials. The study examines recrystallization, grain growth, grain boundary sliding, and cracking. The results of the fundamental studies will help to explain the morphology and plasticity of ice including recrystallization and grain growth. The research on the sliding in ice also offers generic and fundamental insight into the grain boundary sliding and flow such as the super-plastic flow o fine grained two-phase alloys. The research evaluates the local atomic structure of grain boundaries with computer modeling. The modeling includes the details of the dislocation boundaries and will predict the sliding and mobility of various grain boundaries. Experimental tests will be made on the grain boundary sliding in ice bicrystals and polycrystals to verify the predictive results.